Development of a Liquid Sodium Laboratory Model of the Earth's Outer Core

9903958
Lathrop

This instrumentation development project seeks to understand magnetic field generation by the flow of liquid metals (dynamo action) through carefully controlled experiments in liquid sodium. The goal is to better characterize and to better understand the dynamo theory that seeks to explain magnetic field generation for the Earth and other astrophysical bodies. Lathrop et al. will develop a new experiment which will consists of a rotating inner and outer spherical boundary with convecting liquid sodium in between. Additionally, they will undertake a direct comparison between this experiment and numerical simulations to be performed by Gary Glatzmaier at the University of California, Santa Cruz. These comparisons will afford a direct test of the model assumptions used in modern simulations of the earth's outer core.

***